Scholars Award: An Investigation of the Technoscientific Flexibility of Research Infrastructure

This is a proposal to analyze the Multicenter AIDS Cohort Study (MACS) in order to bring to light important ways in which infrastructures adapt to changing scientific and social knowledge, and how such knowledge changes the way the object of study is understood. The researcher will use both archival and ethnographic research methods in carrying out the analysis.

The results of this research will be of interest not only to scientists interested in the relatively recent history of HIV/AIDS, but also political scientists, sociologists, organizational theory experts, and a wide-range of health policy experts. The results of the study will have substantial potential to impact science policy by providing insights for improving the design of future research infrastructure investments.